Determination of the Precise Mechanism of Action of Bone Morphogenetic Protein on Responding Mesenchymal Cells.

Dr. McKnight wants to test the hypothesis that a substance known as bone morphogenetic protein is present in the bone matrix and is involved in growth and repair at the experimental sites on injury. This research is exciting and will enhance our understanding of the physiology of bone growth and repair.